CMG Training - Modern Applied Mathematics for the Atmospheric and Oceanic Sciences

This project is a three-week summer school that looks at the interactions between atmospheric and oceanic sciences on the one hand and modern applied mathematics on the other. It is built around the three themes of numerics, stochastics and asymptotics. The numerics component emphasizes the development of modern conservative advection schemes and interface tracking schemes for geophysical transport problems. The asymptotics component emphasizes the dynamics of balanced flows, reduced models and homogenization. The stochastics component covers a variety of topics including particle models, stochastic calculus, kinetic theory and applications to Lagrangian stirring and moist convection. Approximately 15 faculty provide lectures and mentor the students as they conduct short projects to apply the lecture material. The student body consists of 20 or more graduate students and approximately 12 post-doctoral researchers. Faculty and students are drawn from both the geosciences and the mathematics communities.